Singular limits, saturation, and defects in block copolymer morphology

Ren
DMS-0907777

A diblock copolymer molecule is a linear chain of an
A-monomer block grafted covalently to a B-monomer block. Because
of the repulsion between the unlike monomers, the different type
sub-chains tend to segregate, but as they are chemically bonded
in chain molecules, segregation of sub-chains cannot lead to a
macroscopic phase separation. Only a local micro-phase
separation occurs: micro-domains rich in A monomers and
micro-domains rich in B monomers emerge as a result. A
nano-sized pattern formed from micro-domains is known as a
morphology phase. The investigator develops singular limit
methods to study morphology phases that concentrate on points,
curves, and surfaces in space, and that might not be found by
existing free energy methods. These methods reduce complicated
nonlinear, nonlocal, variational, and partial differential
equation problems to simpler geometric problems. They analyze
the saturation phenomenon: a process of elongation, deformation,
and breaking off of a small number of large objects to form a
large number of small objects. They also explain defects in
morphological phases caused by local-nonlocal competition or
topological constraints. In the case of block copolymer vesicles
the investigator studies the bending rigidity in the free energy.
The singular limit techniques are extended to problems without
variational structures, such as the Gierer-Meinhardt system for
biological morphogenesis in development.

Block copolymers are soft condensed materials that in
contrast to crystalline solids, are characterized by fluid-like
disorder on the molecular scale and a high degree of order on a
longer length scale. An almost unlimited number of molecular
architectures can be designed by modern nano-technologies to
produce materials with particular mechanical, electric, barrier,
ionic and other physical properties. Common box tapes use
triblock copolymers to achieve pressure-sensitive adhesion.
Block copolymers are blended with asphalt in road construction to
reduce pavement cracking and rutting at low and high temperature
extremes. In this project the investigator studies pattern
formations within block copolymers that are related to changes in
the morphology phase of the material, and hence to larger-scale
material properties. The project includes graduate students, who
develop skills and knowledge in both mathematics and materials
science.